Transition States in Polar Solvents. A Kinetic Isotope Effect Study

This project by J. Kurz of Washington University is supported by the Organic Dynamics Program, and is aimed at a better understanding of the role of solvent molecules in certain substitution reactions. This problem will be investigated by the observed changes in the rate of the reactions upon isotopic substitution. Investigations will continue into the origins of the recently observed anomalous isotope effects on the rates of chemical reactions. These anomalous isotope effects are for methyl transfer reactions in polar solvents; they seem to imply that during methyl transfer to an uncharged oxygen nucleophile, changes in bonding and solvation are highly asynchronous. In order to accommodate these data, some revision will be required: either of current physical organic theory, or of current approaches to the interpretation of kinetic isotope effects. The origin of these anomalous effects will be elucidated by (a) measurements of complete sets of isotope effects on the rates of reactions that are known to present anomalies, and on the rates and equilibria of model reactions, (b) the theoretical estimations of observable consequences of the implied bonding/solvation asynchronies, and (c) the computer modeling of transition state force fields that is required for the quantitative interpretation of those sets of isotope effects.